Utah Valley State College Network (UVNET) Wireless Internet Connections Project

This award is made under the innovative technology connections portion of NCRI's "Connections to the Internet" announcement, NSF 96-64, which covers K-12 education institutions (including vocational technical schools), public libraries and museums. It provides partial support for two years to connect three public high schools, a business technical school and a Catholic K-12 school district to the Internet through a 2Mb (million bit per second) full duplex spread spectrum radio transmission system.